Models of the Abyssal Ocean Circulation

It is proposed to study the abyssal ocean circulation with simple numerical models and laboratory experiments in the context of the Deep Basin Experiment (DBE), a comonent of the World Circulation Experiment. The emphasis on the study is on how large-scale bottom topography affects the strength and pattern of the deep circulation.